Acquisition of Nuclear Magnetic Resonance Spectrometer

This proposal requests support to obtaining, an NMR Spectrometer for the following applications: Identification of semiochemicals; Synthesis of organic compounds; Development and characterization of synthetic, selective, polymeric membranes; Biologically active products from algae and plants; Stereochemical studies; Bleaching and pulping studies on model compounds; Transhepatic behavior of environmental toxicants (toxicology); Structure of copolymers and binding of solutes; Solid polymer-electrolyte complexes (solid state probe); Structure of multisite, viral-associated polymerase inhibitors; Geochemical origins of S-heterocyclics; Conformation, crystallinity, and morphology of polysaccharides (solid state probe); Structure of biologically transformed hemicellulose; Glycero- and glycolipids of parasitic protozoans of medical importance; Control of annelation in fused polycyclics; Delignification of wood in situ (solid state probe); Degradation of aromatic pollutants by ligninolytic fungi; Polymer-polymer interactions (solid state probe); Metabolic studies in insects; Computer assisted structure elucidation; Structure elucidation of microgram amounts of insect semiochemicals; Degradation of polysaccharides; Structure-mutagenicity relationships in chlorinated ligno-humics; Kinetics of starch retrogradation (solid state probe); Cation binding sites in anionic polysaccharides (solid state probe); Structure and hydration effects in cellulosic oligomers, dermantan sulfate, a glycosaminoglycan, mannan, and galactomannan (solid state probe).